Penetration Depth in Organic Superconductors

Nontechnical Abstract

Organic conductors represent a class of carbon-based materials where
pressure and temperature may induce transformations from one kind of
electronic behavior to another. A striking example is the transformation
from magnetism into superconductivity which will be the focus of this
project. Experiments are planned to measure a quantity called the magnetic
penetration depth, whose behavior provides a window into the microscopic
behavior of electrons in the superconducting state. This work will build
upon novel techniques previously developed in this lab to measure the
penetration depth. How organic superconductivity differs from its
counterpart in ordinary metals and high temperature superconductors, how it
evolves from magnetism and what ultimately causes it to occur will be the
key questions this project will try to answer. Complex electronic
materials of this type will undoubtedly play a role in future computational
and micro mechanical devices. Understanding the physical principles that
govern their behavior is critical in the same way that understanding the
behavior of silicon was to the computer revolution. This program will
provide training for both undergraduate and graduate students in low noise,
high frequency electronic instrumentation, cryogenics, computer simulation
and high pressure methods. It will also provide these students with the
intellectual challenge of understanding the complex behavior of newly
synthesized materials and help forge links between physics, chemistry,
electrical engineering and material science.

Technical Abstract

Organic conductors are synthetic metals composed of carbon-based
molecules. By changing temperature and pressure they transform from
metals into insulators, magnets or superconductors. Determining the
general principles that govern these electronic transformations is one of
the central unsolved problems in condensed matter physics. This project
will focus on high frequency magnetic measurements in a class of organic
materials for which high quality, single crystals are readily
available. The experiments will utilize electronic oscillator techniques
developed in this lab to measure the magnetic penetration length, a
quantity fundamental to all superconductors. By studying how the
penetration depth changes in response to pressure, temperature, magnetic
field and chemical substitution, a window will be opened into the
underlying quantum state of the superconductor. The themes will be how
organic superconductivity differs from its counterpart in conventional
metals and high temperature superconductors, how it evolves under pressure
from the magnetic phase and ultimately what causes organic materials to
become superconductors. The program will provide training for both
undergraduates and graduate students in low noise, high frequency
electronic instrumentation, cryogenics, magnetic measurements and
high-pressure techniques. It will also provide students with the
intellectual challenge of understanding the complex behavior of newly
synthesized materials.